Chemical Science Research Experience

This Research Experiences for Undergraduates (REU) Site project is in the areas of chemistry and chemical engineering. For a three- year period beginning April 1989, eight (8) undergraduate students will spend ten (10) weeks engaged in research in the chemical sciences, under the direction of various members of the faculty in both the Chemistry and Chemical Engineering Departments. The unique feature of this REU site activity is that it brings together Chemistry students and Chemical Engineering students in projects which are jointly monitored by Chemistry and Chemical Engineering faculty.